Collaborative Research: Kinematic Reductions of Underactuated Mechanical Systems

One of the most fundamental capabilities for an autonomous or
semi-autonomous robot system is the ability to quickly plan and
reliably execute its own motions. We will study these fundamental
problems for underactuated mechanical systems -- systems with fewer
actuators than degrees-of-freedom. Our interest in controlling this
class of systems stems from two considerations. (1) It allows
software control redundancy (as opposed to mechanical or actuation
redundancy) when one or more actuators of a fully actuated system
fails. (2) It is possible to design inexpensive mechanical systems by
minimizing expensive mechanical elements such as actuators and
transmissions and replacing them with advanced control algorithms.

We will explore a novel concept for mechanical control systems called
kinematic reductions. A kinematic reduction of a mechanical system is
a first-order driftless system whose trajectories can be followed by
the second-order mechanical system. Kinematic reductions allow
kinematic constraints (such as obstacles and joint limits) and
actuator limits to be handled in a computationally efficient manner,
allowing the possibility of real-time trajectory generation for
underactuated systems. Kinematic reductions encode the notion of
``preferred'' motion directions for the system, allowing the planned
trajectories to be followed quickly.

To make full use of these properties of mechanical systems for
real-time trajectory generation and control, we will study a number of
open issues. These include understanding when the kinematic reduction
allows for closed-form calculation of motion plans for underactuated
systems; adapting efficient kinematic motion planners from the
robotics literature to kinematically controllable systems; local
trajectory optimization; feedback control to stabilize trajectories of
the kinematic reductions; and implementation and validation of the
control strategies on an experimental vehicle. We also plan to
explore the role kinematic reductions will play in developing
reduced-complexity hierarchical hybrid motion models.